IFAC Workshop Lagrangian and Hamiltonian Methods for Nonlinear Control

PI: Naomi Leonard, Princeton University
Proposal Title: IFAC Workshop on Lagrangian and Hamiltonian
Methods for Nonlinear Control Project Abstract:
The main objective of the workshop is to foster in-depth discussion of recent theoretical and practical developments in Lagrangian and Hamiltonian approaches to nonlinear control by experts in the field (including 18 invited speakers) as well as interested researchers and practitioners. New technologies have created engineering problems where successful controller designs must account for nonlinear effects, yet existing theory for general nonlinear systems often proves insufficient. Examples include autonomous vehicles in air, land, space and underwater, smart materials for actuators, sensors and control devices, robotics for manufacturing and medicine, micromachines, electrical networks, power electronic devices, control of fluids and fluid-structure interactions, molecular control and vibration suppression in engineering structures. It is expected that the workshop will have a significant impact in both theory and application as the discussions and interactions among the researchers will lead to new developments, collaborations and merging of ideas that further the field.